1995 National Engineering Faculty Forum: An Interactive Teleconference Series to Share Best Practices in Undergraduate Engineering Education

9550462 Baldwin Project Summary A monthly series of interactive satellite teleconferences are being delivered to faaulty who teach undergraduate engineering students. Each telecast will feature an innovative "best practice" that can be adapted by participants. NTU will work with NSF DUE staff to identify topics and presenters. NTU will produce, market, deliver and evaluate eight one-hour, interactive teleconferences in 1995. This grant enables the seminars to be provided without charge to faculty participants. A license to copy and reuse a videotape of the teleconferences as well as the printed material provided to each registered college is integral to this very cost-effective dissemination project. Participants will be surveyed to determine the impact of their participation.